Picosecond and Nanosecond Laser Pulse Shaping for State-Selective Chemistry

Dr. Warren S. Warren is supported by a grant from The Physical Chemistry Program to develop new laser pulse shaping and pulse sequencing techniques for spectroscopic studies of molecular species in both gas and condensed phases. The novel aspect of this work comes from the use of enhanced control over the laser radiation field to produce simple and interpretable molecular states in a wide variety of applications. Warren has demonstrated both theoretically and experimentally that it is possible to produce shaped pulses and pulse sequences with picosecond resolution, high powers, and complete phase control. He has also demonstrated which characteristic shapes would be required to solve specific molecular problems such as selective excitation of vibrational states, compensation for optical density and relaxation effects in both gases and molecular crystals, and velocity selection without the use of molecular beams. These techniques are being used in a variety of studies. For example, two shaped pulses of different colors are being used to selectively and completely pump high vibrational states in iodine, thus permitting study of both velocity changing collisions and the evolution of the reaction which powers the oxygen-iodine laser. Shaped deep-UV pulses plus visible pulses are being used to characterize the bending potential and photochemistry of HCP. Localized molecular excitations of 1,4-dibromonaphthalene are being pumped in order to study soliton propagation in fibers. Finally, photon echo sequences are being studied to give undistorted decays independent of optical density effects and molecular interactions in mixed organic crystals.